Infinite-dimensional dynamical systems: nonlinear stability, large-time transient behaviors, and bifurcation

When modeling physical or biological processes, one main goal is to use the model to predict the behaviors of the system that will be observed in the real world. Stable states of the system will attract all nearby configurations, and thus they can play an important role in determining the behavior. On the other hand, if the time-scale on which the system evolves toward that state is very long, one may never be able to wait long enough to see the stable behavior emerge. It is therefore important to also understand the transient behaviors that persist for long times. This proposal is concerned with developing mathematical techniques for both determining if a given state is stable and also for investigating such transient behaviors. In addition, certain bifurcations that capture when a state loses stability are analyzed. This is accomplished through the analysis of three main problems: determining the nonlinear stability of sources, a certain type of time-periodic pattern in reaction-diffusion equations; characterizing transient, yet persistent, dynamics in the two-dimensional Navier-Stokes equation; and analyzing the loss of stability of spatially periodic waves in a cardiac model and its connection with irregular heartbeats.

One primary goal of the mathematical modeling of physical and biological processes, in general, is to predict the way the system will behave in time. One way to do this is to look for so-called stable states. Stable states attract all nearby configurations, and thus provide great insight into the types of behaviors that will be observed. For example, when studying a model of cardiac dynamics, a periodic solution could correspond to regular heartbeats. If this solution is stable, then, even when subject to disruptions in its natural rhythm, the heart will relax back to regular beating. However, if a bifurcation occurs in which the periodic solution loses stability, this could correspond to a scenario in which arrhythmia, or irregular beating, will occur. Since this behavior is undesirable, one would like to determine, via mathematical modeling, how to adjust certain parameters in the system so that the periodic solution does not lose stability. This proposal concerns the development of mathematical techniques that allow one to determine if a given solution is stable, ways in which the solution could lose stability, and what types of transient behaviors one could observe as the system relaxes to a stable solution. The analysis is carried out in three main mathematical settings, each of which is related to applications in biology, such as the cardiac dynamics mentioned above, or physics, such as fluid dynamics.